STTR Phase I: The Development of Quantum Dot Materials for Ultrafast Laser Applications

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

This Small Business Technology Transfer Phase I project is to develop quantum dot-based materials to enable the development of low cost, ultrafast lasers. By utilizing new quantum dot semiconductor materials, ultrafast lasers that are monolithic, robust, and inexpensive are planned.

Successful completion of this STTR project will result in the development of compact, robust and inexpensive ultrafast laser systems. These systems will address a wide variety of markets including bioinstrumentation, biomedical applications such as corrective laser surgery and screening pharmaceuticals, and for instrumentation for homeland security and several military applications.